Towards a theory of a culturally representative visual ethnography in the Arctic: Alaska and Siberia

This research project is a description and analysis of two experimental studies in visual ethnography: a portrayal of Koyukon Indians (Alaskan Athabascans), and a comparative study of the reindeer-herding Khanty (Ostyaks) of Western Siberia. The project addresses issues of cultural representation and the incorporation of Native perspectives in ethnography, two major themes in anthropology today, and of great interest to Native Americans. This project also contributes to the development of Native American education, a national concern and priority.